Improvement of Japanese Technology Evaluation and Access Methods

This is an expedited award to assist in the Japanese Technology Evaluation (JTECH) program. The JTECH program began at NSF about four years ago, and has the purpose of examining selected areas of technology where the Japanese appear to pose a significant threat to US economic competitiveness. To date, seven technologies have been examined, including for example, telecommunications hardware, computer science, advanced scientific computing, robotics, and biotechnology. The reports of the JTECH panels have received widespread circulation, and summaries have been published in a variety of technical magazines. The JTECH program is now entering a third phase, with funding in excess of $400,000, from NSF, DARPA, and the Department of Commerce. The research to be performed by this study is on the process of performing studies of the JTECH type. This study will be done in real time with feedback that could improve the quality of the product significantly. The project is intended to explore a number of issues that relate to the conduct and dissemination of JTECH-type studies. Issues to be addressed include the assessment methodology itself, the process of choosing technologies to study, methods for reducing the costs of studying each technology, dissemination of results, and institutionalization of studies of this sort.